Heavy Quark Physics

This grant will support studies of one of the six flavors (types) of quarks known to exist the b (beauty) quark. The experiments plan to work on a current experiment at an electron-positron collider and to develop a future experiment at a hadron machine. These two approaches are complementary and will allow the development of a more complete picture of how the b quark interacts and decays. The experimenters hope to learn about CP-violation or why nature is not perfectly symmetric. CP violation implies that matter and anti-matter interact differently and helps explain why we live in a matter dominated universe.